Industry - University Cooperative Research: INC/CNC Machin-ing -- Simulating, Planning, Systems & Sensors

Numerically controlled (NC) machine tools are among the most important components of automated factories. Much research remains to be done with them, however, before they reach their full potential. Four tasks in this connection will be completed. First, a simulator for 3-axis NC/CNC machining will be completed and tested. It will serve as a programming and debugging aid, for automatic program verification, and for guiding the further design of geometric modeling systems. Second, a system for automated planning of machining processes will be developed. The problem to be tackled is making prismatic parts by a group of machining processes, using several setups. Third, computer numerically controlled machine systems will be studied, to determine how the computing capabilities can best be distributed. Fourth, a task on sensors is aimed at putting software for gaging probes within the machine controller, with machine-driving software in a separate computer.